An Automated Polarimeter for Undergraduate Instruction

The Chemistry department is purchasing an automated polarimeter for use in several upper division courses. Students are using the instrument to study the kinetics of disaccharide hydrolysis and of the racemization of optically active transition metal complexes. Stereoselectivity of various synthetic reageants are being investigated in the advanced organic chemistry laboratory. It is also being used by undergraduate students conducting independent research.